Piimary Production Measurements for the 20-West Program

The Joint Global Ocean Flux Study (JOGFS) of the spring bloom in the North Atlantic will begin in 1989. This study will be conducted along longitude 200W from the beginning of April through August. The significance of this first U.S. GOFS experiment revolves around the large biological signals in the plankton and the hypothesized importance of these large signals to the overall yield of the system. This is a Level-1 component of the U.S. contribution to JGOFS for the measurement of primary production during the processes-oriented cruises of the North Atlantic Experiment. Primary production measurements will be conducted in situ, using metal-clean techniques.